RUI: Experimental Neutrino Research with NOvA and MINERvA

The University of Minnesota Duluth particle physics group of Gran and Habig is participating in Fermilab experiments MINOS+, MINERvA and NOvA, that are addressing questions of the neutrino mass hierarchy, improved measurements of the neutrino mass-squared difference and mixing parameters, improved measurements of neutrino cross sections and studying astrophysical neutrino sources. The University, an RUI institution, is strategically located close to the NOvA and MINOS detectors which are located in northern Minnesota. This affords UMD students an excellent opportunity to participate effectively in the research program. The broader impacts aspects of the program are extensive, as the group provides leadership for the education and outreach program of the Soudan Underground Laboratory in which the MINOS detector is located. This program engages teachers, students and the public in the northern Minnesota region in the excitement of forefront research.